MGR Honorable Mention: Travel Stipend for Glen C. Otero to Attend the International Society for Neurochemistry Meeting in 1991

This special award will give Glen Otero additional flexibility in pursuing his graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.